Riemann-Hilbert Problem and Integrable Systems

Abstract
Zhou

This proposal project covers, perturbation theory for focusing NLS,
multiple orthogonal polynomials, oscillatory Riemann-Hilbert
problems with nonanalytic phase, zero dispersion of focusing NLS,
orthogonal rational functions, and Janossy densities in the random
matrix theory. All these problems require Riemann-Hilbert problem
techniques to study.

This project is an effort to develop further the analytic aspects
and the interdisciplinary applications of the fruitful field of the
Riemann--Hilbert problem method, with the balance between its
intellectual and educational merits. The study of Riemann--Hilbert
problem has applications in several areas of mathematics and
mathematical physics, including partial differential equations,
statistical mechanics and combinatorics.